Curatorial Technical Staffing and Equipment for the Library of Natural Sounds

The Library of Natural Sounds is part of Cornell University's Laboratory of Ornithology. The Library is one of two large U. S. collections of animal sounds, mostly bird songs. These recordings are of the highest quality, and they provide an unmatched resource for research scientists interested in animal behavior. The Library has an active program for adding new and unique recordings to the collection. The collection has an international reputation for the diversity and quality of its representation of tropical species. Dr. Christopher Clark, Director of the Library, plans continued improvement in the services offered to researchers and the recording capabilities used in copying and archiving recordings. New digital tape recorders will be added to the Library's studios, allowing exploration of this promising new technology. Animal sounds are important components of research projects in ecology, reproductive biology, behavior, physiology, developmental biology, and evolutionary biology. The Library of Natural Sounds provides an indispensable service to the research community by providing a rich and accessible source of high- quality recordings.